Theoretical and Experimental Studies of Line Broadening in Plasmas for Lighting

Line broadening plays an important role in high- pressure, industrially important lighting plasmas. In this GOALI project a joint experimental/theoretical study of line broadening in sodium related plasmas will be conducted between the Smithsonian Astrophysical Observatory and OSRAM Sylvania Inc. These studies not only impact our understanding of commercially important lighting sources but are also needed to model other plasma processes where radiative transport is important. This project is jointly supported by the Office of Multidisciplinary Activities of the Directorate for Mathematical and Physical Sciences and the Division of Physics at the NSF.